Cooperative Research: Three-Dimensional Effects of Tsunami Runup Onto a Coastline

This action is to renew support for a multi-institutional research project involving Professor Philip L.-F. Liu of Cornell University, Professor Costas E. Synolakis of the University of Southern California, Professor Harry H. Yeh of the University of Washington, and Professor Emeritus George F. Carrier of Harvard University. Professor Liu serves as the coordinator for this project. The program is a coordinated effort to investigate the relationship between the ground movement in the source region of the earthquake, and the resulting runup distribution for a nearshore tsunami. Professor Yeh is responsible for a major laboratory experiment to measure the tsunami runup heights caused by an offshore seafloor displacement. The laboratory results provide essential data to verify the inverse algorithms which determine seafloor displacement from the runup information Professors Liu and Synolakis are responsible for the development of the inverse algorithms and the improvement of the simulation models. Professors Carrier and Liu are collaborating on improving the effectiveness of numerical models by using some of the strengths of analytical approaches. The investigators and participating researchers will meet twice a year to discuss research results and research directions.